Novel Aerogel Catalysts for Partial Oxidation of Methane

The objective of this program is to use the advanced preparation techniques of aerogel catalysts to prepare different multicomponent catalytic systems for partial oxidation of methane. The major advantages of this preparation procedure are that metallic components can be combined in any proportions and that it produces high surface area and highly porous materials. The experimental program will be directed towards the preparation, characterization, and testing of these aerogel catalysts during partial oxidation and oxidative decoupling of methane. The information gathered will be used to design a catalytic system that would optimize the partial oxidation of methane.